SGER: Hocoka: From the Heart of the Nation to the Rim of the World

Based on the concept of Hocoka-the center of camp life, this project will develop a pilot-scale multimedia information database designed for distribution over Internet 2 formats. Illuminating a wide array of cultural convergence on the Northern Plains, the pilot project will develop a database featuring five demonstration entries: 1) American Indian Art of Oscar Howe; 2) The Wounded Knee Occupation (1973); 3) Pioneer Missionaries; 4) The Impact of Mining in Dakota land, and 5) Sacred Practices. Each of these entries is based upon visual images of museum artifacts, audio recordings from an extensive oral history collection, and textual material from special library collections. Participating in this project are several unique cultural resources that reside at the University of South Dakota: the Institute of American Indian Studies which houses the Oral History Center containing over 1,900 interviews of American Indians; the Oscar Howe Art Collection and Archives; the W. H. Over Museum; and the Herman P. Chilson Collection of Western Americana. Technical resources brought to bear on the project include the University of South Dakota Internet 2 project and the Center for Instructional Design and Delivery.